Individual Nomination: Transforming Students into Scientists

Dr. Andrew Tsin is Professor of Biochemistry and Physiology and Associate Vice President for Health Research at the University of Texas at San Antonio (UTSA). Through his innovative, comprehensive mentoring methods tailored specifically for underrepresented groups, 100% of his undergraduate and graduate students completed their degrees. Since 1981, Dr. Tsin has personally mentored 119 students in his research laboratory, of whom 93% are from underrepresented minority groups (i.e., Hispanic, African American, and American Indian) or are female. In addition to his faculty duties, Dr. Tsin serves as associate dean of research in the UTSA College of Sciences, director of UTSA's major National Institutes of Health programs, and as Director of the UTSA Center for Research and Training in the Sciences (CRTS). Dr. Tsin has received numerous awards for excellence in mentoring, research, and teaching and he has published 57 peer-reviewed publications co-authored by students from underrepresented groups.